Facile Syntheses of Highly-Oxidized Graphite Fluorides

This award is made as the starter grant increment of Dr. Lerner's Postdoctoral Fellowship in Chemistry Award in support of his research at Oregon State University. The thrust of Dr. Lerner's research is the synthesis of highly oxidized graphite fluorides by novel chemical routes. The synthesis to be examined will not employ elemental fluorine as an oxidant. Instead, powerful, but convenient, oxidants such as Mn(VII) and Cr(VI) in combination with solutions containing small, readily-intercalated ions such as fluoride or bifluoride will be utilized. These reactions can be carried out under ambient conditions in aqueous acid solvents. A variation will be to employ graphite salts such as those of stable fluorometallate or oxometallate anions rather than graphite as a starting material. The structural, electronic and electrochemical properties of the graphite fluorides will be examined by X-ray diffraction, 4-probe conductivity measurements, vibrational spectroscopy and coulometric reduction.